Effects of Deglaciation on Mantle Melting and Magma Transport in Iceland

The volcanic nation of Iceland formed through ~15 million years of interaction between an oceanic spreading ridge and a rising column of unusually hot material (the Iceland mantle plume or hot spot). The Tungnárhraun basalts in southern Iceland erupted over the past 10,000 years and include some of Earth’s largest individual lava flows. The lava flows are associated with melting of polar ice sheets at the end of the Ice Age. This project explores the processes and time scales through which such large volumes of lava are formed, stored and erupted. The lavas contain large crystals that record changes in pressure, temperature and chemical composition as the magma moves towards the Earth’s surface. Patterns in crystal chemistry reveal the physical processes that lead to dangerously large lava flows. Temporary changes in melt supply and/or the rate of rifting also influence the volume of magma that erupts. Study of large basalt flows help us understand how Iceland formed, and where to expect future large eruptions.

The goal of the work is to study the origin of unusually large basalt lava flows that erupted in southern Iceland as glaciers melted at the end of the Ice Age. The research uses state-of-the-art geochemical analyses to determine changes in magma supply (melting rate or depth), crustal structure, or the rate of rift formation. High-precision geochemical data from carefully selected lavas will indicate whether there have been systematic variations in melting at distinct depths in the mantle. Strontium-lead isotopic analyses of large plagioclase feldspar crystals and basalt lavas will identify contributing mantle source domains (plume, lithosphere, asthenosphere). In-situ strontium isotope and trace element analyses of individual plagioclase crystals from several well-characterized large basalt flows will determine the time scales for the accumulation of magmas beneath the surface, and the eventual eruption of the lavas.